North American Carbon Program (NACP) and Ocean Carbon and Biogeochemistry (OCB) Interim Coastal Carbon Synthesis

The contribution of coastal margins to regional and global carbon budgets is
not well understood, largely due to limited information about the magnitude, spatial distribution,
and interannual variability of carbon sources and sinks in coastal waters. The Ocean Carbon &
Biogeochemistry (OCB) Program has been collaborating with the North American Carbon
Program (NACP) over the past two years to develop a Coastal Interim Synthesis Activity as part
of the NACP Interim Synthesis activities, the goals of which are to bring together relevant
observations, data, and modeling efforts in an effort to identify and quantify key sources, sinks,
stocks, fluxes, and associated processes in the North American carbon budget. The objective of
the Coastal Interim Synthesis Activity is to synthesize individual, small-scale observational and
modeling studies from different regions of the North American continental margin across
broader spatial and temporal scales to improve quantitative assessments of the North American
coastal carbon budget. Because the coastal oceans have important and complex linkages with
terrestrial, atmospheric, and open ocean biogeochemical cycles, it is important to provide for the
participation of researchers focused on both organic and inorganic carbon, as well as nitrogen
and phosphorus cycle topics related to carbon balance and related issues such as hypoxia
impacts on continental margins.

With support through this award to the Woods Hole Oceanographic Institution (WHOI), OCB
scientists from WHOI, the University of Alaska - Fairbanks, and the University of South Florida
will convene two workshops to facilitate data gathering and synthesis efforts related to coastal
carbon budgets in five regions?East Coast (including Gulf of Maine), West Coast (including Gulf
of Alaska), Gulf of Mexico, Arctic (including marginal seas such as the Bering, Chukchi, Beaufort,
and Baffin-Labrador), and Great Lakes. Additional funding to support these efforts will be provided
by NASA and NOAA.

Broader Impacts: Coastal margins represent a significant unknown in the North American
carbon budget. By leveraging the shared community expertise of two leading U.S. carbon cycle
science programs (NACP and OCB), this project will improve coastal carbon sink/source
estimates and facilitate the community interaction needed to ensure a seamless transition
between land and sea in our understanding of the most important processes driving the North
American carbon cycle. The proposed approach convenes scientists with specialized
knowledge of regionally important physical and biogeochemical processes to develop robust
regional coastal carbon budgets that more effectively account for some of the inherent spatial
and temporal variability of coastal systems. Another key outcome of this project will be a
tremendously valuable historic dataset that will improve our understanding of the carbon cycle
and inform public discussion and policy making on issues related to climate change, human
health, and fisheries, all of which are intimately linked to carbon cycling. Recovery of these data
and their incorporation into a publicly accessible data base will enhance the development of
predictive models for coastal regions and also enable more comprehensive linkage of land,
atmosphere, and ocean modeling of carbon dioxide and the carbon cycle. There are currently
>50 years of observations in most U.S. coastal regions, providing much-needed historical
context to monitor the health of coastal ocean ecosystems, which are becoming increasingly
vulnerable to threats of ocean acidification, eutrophication, and hypoxia.